Flame Synthesis of Diamond

The proposed research is a fundamental study of diamond synthesis in flames. Diamond growth in low-pressure, one- dimensional H2/O2/Ar-CH4 and C2H2/O2/Ar flames will be investigated and the conditions for which growth occurs will be determined. The experiments are designed to provide a well-characterized growth environment with known chemistry. Growth experiments will be carried out using both thin-wire micro-substrates which do not perturb the flame significantly and large-area substrates designed to maintain a one- dimensional flowfield in the gap between the burner and substrate. The one-dimensional flowfield is predicted to result in uniform large-area film growth. The flames will be thoroughly characterized. Stable species profiles will be measured using a quartz probe and an on-line sampling mass spectrometer, and radical profiles (H, CH3, C, OH, CH, and C2) and temperature profiles will be measured optically using laser-induced fluorescence, resonance-enhanced multiphoton ionization, and vibrational Raman scattering. The measurements will be made both with and without the substrate, and will be compared to the predictions of a one-dimensional reacting flow model with detailed kinetics. These experiments will be the first study of diamond growth in a truly well- characterized environment, and will yield significant information on the processes responsible for diamond growth.